Conference: 2nd BMES-SPRBM Conference on Cellular and Molecular Bioengineering, San Juan, Puerto Rico, January 3 - 7, 2012

The objective of this application is to seek NSF support for the 2nd inaugural joint Biomedical
Engineering Society (BMES) and the Society for Physical Regulation in Biology and Medicine
(SPRBM) Conference on Cellular and Molecular Bioengineering (CMBE) (30th SPRBM Annual
Scientific Conference) (short: 2nd BMES-SPRBM Conference on CMBE). The first joint conference
(2011) on the specific theme of Molecular Imaging and Mechanotransduction was extremely
successful. This joint CMBE conference (2012) will expand the scope and be focused the theme of
Cell Motility, Matrix, Mechanobiology and Regeneration. As a rising science field the cellular and
molecular bioengineering became possible to culture and engineer cells outside the body, and
provide intrinsic insights for their role in regeneration. In the mean time, the elucidation of the
cellular and molecular basis of life became one of the great achievements of the twentieth century,
culminating in the complete sequencing of the human genome. Today we stand in the midst of an
amazing convergence, which has created a nexus for bioengineers. Both the BMES and the
SPRBM realized that research at this remarkable nexus, Now, the inaugural joint BMES-SPRBM
Conference on CBME is the beginning of a new focus of the promising subfield in biomedical
engineering and much needed forum for this exciting field.

Intellectual merit: The explosions of cellular motility, cellular/molecular functional matrix and the
role of mechanobiology and regeneration such as extracellular matrix and the manipulations in vitro
and in vivo enables new fundamental regeneration at the cellular and molecular level, as well as
providing new monitoring modalities in vivo. Therefore, these lead to the exciting theme of the
inaugural BMES-SPRBM joint Conference on CMBE. This application will be first is to provide
support to young and junior researchers, postdoctoral fellows, and graduate students whose
submitted papers have been selected for podium presentation on the basis of scientific merits, and
promote minority and women scientists in the field; and second to foster the emergence and growth
of the exciting sub-filed of CMBE. The abstracts will be published in a Conference Proceeding, and
selected full length papers will be published in a special issue of Cellular and Molecular
Bioengineering.

The specific aims of this meeting are: (1) delineate the current status of cellular and molecular
motility, matrix, mechanobiology and regeneration, in which leaders from the CMBE fields will give
an overview of cellular molecular motility, functional matrix concepts and review the current state of
mechanobiology and adaptation, as well as their research in molecular/cellular/tissue/ functions and
tissue/organ regeneration; (2) brainstorm the emerging field of CMBE with a focus on the role of
cellular/molecular mechanics, motility, functional matrix and mechanotransduction with regeneration
potentials, which the outcome will be published in a special issue of CMBE; (3) provide training
workshop for junior faculty, investigators, and students on grant writing and opportunities; and (4)
environment setting. The conference program will include Podium Sessions with invited Keynote
speakers and other invited speakers. Graduate students, postdoctoral fellows, and junior
investigators will also be encouraged to submit abstracts. These abstracts will be organized into a
poster session with cheese/wine receptions. Nine graduate students/postdoctoral fellows will be
selected by the organizing committee to present short talks and six-eight junior investigators will be
selected for a Young and Rising Star session.

Broad impacts: The rise of engineering in the twentieth century led to profound change for
humankind. The advances in biology are equally amazing. It became possible to culture and
engineer cells outside the body, and provide intrinsic insights for their role in regeneration. The role
of mechanical modulation of cell functions has been an intensive focus in modern biology and
bioengineering. The explosions of cellular motility, cellular/molecular functional matrix and the role
of mechanobiology and regeneration enables new fundamental regeneration at the cellular and
molecular level, as well as providing new monitoring modalities in vivo and in patients.